Acquisition of a Transmission Electron Microscope

This project provides a high-resolution 300kV transmission electron microscope (HRTEM) for fundamental studies of microstructures in a variety of materials systems. The HRTEM will be used in applications of high-resolution imaging and image simulations, and fine-probe energy-dispersive x-ray spectroscopy to problems including seeding of ceramic precursors, composite interfaces, nanocrystalline solids, diamond films, and ferroelectric materials. Both fundamental questions and application-oriented issues concerning the processing-microstructure-properties links will be addressed. The HRTEM facility will also serve an educational purpose in supplying graduate students with hands-on experience in state-of-the-art microstructural analysis. Furthermore, it will provide opportunities for technique development that will go beyond the boundaries of these specific projects. The HRTEM will be organized as a user facility with administrative and staff support provided by the Materials Characterization Laboratory at Penn State, which currently manages operation and maintenance of the existing electron microscopes, x-ray diffraction equipment, ion and electron microprobes, and other user-oriented instruments use for characterization of advanced materials. This will be one of three instruments of it's kind in the US.